Normal Mode Analysis of Liquids

Thomas Keyes of Boston University is supported by a grant from the Theoretical and Computational Chemistry Program to continue his work on normal mode analysis of the dynamical properties of supercooled liquids. Normal mode analysis will be used to calculate the effect of internal vibrations on self diffusion in carbon disulfide and in small alkanes, vibrational dynamics and lifetimes of model diatomics in liquids, and torsional barrier crossing rates in n-butane. This methodology will also be used to interpret the temperature dependence of vibrational lifetimes. Keyes plans to develop a theory for femtosecond spectroscopy and solvation dynamics. Theoretical results will be compared with molecular simulations and with experiment. There are excellent theoretical models which explain the behavior and properties of gas phase systems where the motion is chaotic, collisions infrequent, and interactions are weak. Theoretical models for the solid state are also quite well developed since periodic order in crystalline systems provides the necessary simplifications to lead to tractable solutions. The properties of liquids and supercooled liquids or glasses still present quite a challenge to theoretical interpretation. Keyes is one of several theoretical chemists who is making significant headway on developing a molecular interpretation of the physical and chemical properties of liquids. The long range impact of this work could be significant in helping to understand chemistry in condensed phases.